Geographic Studies Center

The primary purpose of this proposal is to design and implement a Geographic Studies Center as a model geography laboratory for Wyoming and northern Colorado. The Center will engender student and teacher interest in geography by demonstrating ways in which technological advances (computer graphics, high-quality videodiscs) are creating new learning opportunities in this field. Students at Laramie County Community College will be the most immediate beneficiaries of this laboratory facility, but it also will serve as an innovative model and inservice venue for educators and students throughout this region. Geography teachers from Laramie County, professors from the University of Wyoming, and community college instructors will be involved in the design and implementation of the Geographic Studies Center.